Coordination Mechanisms: Theory and Applications

This award is for continued support of an interdisciplinary research program on problems of coordination. The research began in 1989 when the Principal Investigators were successful competitors in the first NSF Special Initiative on Coordination Theory and Technology. The Principal Investigators' disciplines are Computer Science, Electrical Engineering, Economics and Operations Research. Some of the problems under study are primarily theoretical; some of them require computational experimentation; and some of them model the tasks of real organizations. The problems may be viewed in the following way: a designer is given a organization-a group of persons/processors each of whom has private information about some aspect of the organization's changing environment. The organization's task is to compute a specified function of its current environment; often the value computed can be interpreted as an ACTION that is the organization's desired response to its environment. The designer has to construct a MECHANISM (sometimes called a "protocol") which (1) tells each person/processor what to do (what computations to perform, what messages to send to whom) at each of a sequence of steps, and (2) achieves the task when the sequence stops. The designer wants the mechanism to be quick and cheap-according to several interesting cost measures-as compared to the other mechanisms that also achieve the task. The investigators also conduct an interdisciplinary Seminar on problems of coordination-in which the investigators, graduate students and visitors take part. The investigators also guide dissertations on coordination problems which often take interdisciplinary approach.